Conference: The Vestibular Labyrinth in Health & Disease Conference: November 16-18, 2000: Eric Newman Center, Washington University Medical School: St. Louis, MO

Vestibular research has seen recent major advances with the advent of new tools,
techniques and ideas. These advances have been realized in studies of both the
central and peripheral vestibular systems and in studies performed in both
terrestrial and micro-gravity. Advances have been made in the understanding of
the contributions of biomechanics, including intralabyrinthine pressure and the
stiffness and elastic restoring forces of the stereocilia and cupula to the
formation of the response dynamics of the semicircular canal nerves
The conference should be of interest to broad areas of neuroscience,
including developmental biology, physiology and pharmacology, space biology,
bioengineering, and the medical fields of neurology, otolaryngology, and
neurosurgery. The conference will be held in the Eric P. Newman Center for Continuing
Education of the Washington University School of Medicine from Thursday November
16 through Saturday November 18, 2000 under the direction of Drs. Stephen M.
Highstein, Chair and Joel Goebel, Co-Chair. Speakers have been chosen by Drs.
Highstein and Goebel with the advice of the advisory panel and others prominent
in vestibular research. While many of the speakers have national and
international reputations as leaders of their fields, an emphasis has been
placed on the contributions of younger workers wherever possible. Women are
also represented to the maximum extent possible. We are interested in bringing
existing controversies to light, and adequate time will be provided for
discussion and resolution of differing viewpoints. An effort has been made to
provide an outlet for research that is new and on the cutting edge in a poster
session.